Proposal for Upgrade of Backbone and Support of Remote Higher Educational Institutions

WPC@ 2 B V J Z Courier l ? x x x , 1C x 6 X @ `7 X @ HP LaserJet 4 HPLAS4.PRS x @ \ S SX @ı 2 . > #| x 3 ' 3 ' Standard 3 ' 3 ' Standard / rJet 4 4 ı 9303349 Ricart The networking project of the Southeastern Universities Research Association, SURAnet, is in the process of re engineering its topology so that it becomes more economical to connect schools located in remote, rural areas. At the same time quality of service will be improved to all connected sites including larger, less remotely located institutions. This growth of connection points will reduce the distance from the new institutions to the closest SURAnet backbone point, thus reducing the cost of access lines. The larger number of aggregation points will also reduce congestion and packet loss at each aggregation point. Additionally, they will provide a variety of information and support services to assist institutions in defining and selecting appropriate hardware and software to establish their own institutional TCP/IP local area network (LAN).